Geometry and Topology in Two and Three Dimensions

9803619
He
Infinitesimal deformation of disk patterns in the plane can be
characterized by harmonic functions on an electric network that is
obtained by a simple geometric construction. Properties of the
electrical network may be used to derive rigidity properties of disk
patterns. The technique may also be applied to prove characterizations
of three-dimensional convex hyperbolic polyhedra, generalizing both
Andreev's Theorem and a characterization theorem due to Hodgson and
Rivin. The investigator will explore relationships between the
deformation of disk patterns and that of three-dimensional hyperbolic
cone-manifolds, and study the applications of these results to other
fields. He will also continue the research on the Koebe uniformization
conjecture.
The study of geometry and topology in two and three dimensions are
intimately related. Many three-dimensional geometric topology problems
may be reduced to problems in two dimensions, and geometric structures
may be applied to solve topological problems. This project's research
on disk patterns, three-dimensional hyperbolic polyhedra, circle
domains and disk packings, three-dimensional geometric structures and
their applications, and on topological hydrodynamics, will contribute
to a better understanding of the geometry and physics of our real world.
It is also an interesting fact that geometric structures on manifolds
can be applied to yield information on their topology, and in turn the
information on their topology may be used in some problems in
hydrodynamics. There is a related study of Moebius energy of knots and
links, where several most elementary questions remain unsolved. This is
a field where theory and experiment meet well.
***